Qubic: Biological Information Technology Systems: Self-Perfecting Genetic Circuits

EIA-0130613
Arnold, Frances
California Institute of Technology

BITS: Biological Information Technology Systems - BITS: Self-Perfecting Genetic Circuits

We propose to develop efficient, evolutionary design strategies for constructing functional de novo genetic
circuits. We will apply methods of molecular evolution, which have proven highly successful for
engineering proteins with improved or altered properties, to complex genetic systems involving multiple
repressors, operators, and promoters. We believe that evolution will prove to be generally applicable for
optimizing individual devices as well as complex genetic circuits, and our goal will be to demonstrate
how evolutionary searches are best performed in order to build libraries of devices and assemble them
into functional circuits.

We anticipate that this research will establish a general strategy for de novo genetic circuit design
and provide new insight into the natural algorithms of information processing in biological systems and
biological complexity. This research exploits, in powerful combination, the strengths of classical
approaches in electrical circuit design (characterizing the device physics of gates, then composing
circuits from well understood components) with adaptation mechanisms (mutation and selection)that are
the hallmark of biological systems.